RUI: Characterization of Corrosive Metabolites from Biofilms on Metal Surfaces

This program is jointly funded by the Division of Chemistry and Division of Materials Research as part of the Materials Chemistry and Chemical Processing Initiative. Proposed is research on pitting corrosion in copper tubing related to the presence of biofilms of mixed bacteria on the surface. Biofilms of mixed bacterial populations excrete a variety of substances at the metal surface which contribute to the formation of irregularly spaced pits that penetrate the walls of the tubing. In this research attenuated total reflectance Fourier transform infrared spectrometry (ATR/FT-IR) is used to identify specific biofilm bacteria species and their adhesive exopolymers which promote deterioration of the underlying copper and copper/nickel surfaces. A reflectance-absorbance cell will be designed for the FTIR in order to identify chemical species that accumulate at the metal surface beneath the biofilm. A spectrochemical approach is used to determine how the rate of biofilm development and microbial-influenced corrosion vary as a function of the applied potential. The identity of inorganic reaction products accumulating in the pits and around specific bacterial colonies will be confirmed by Auger and X-ray photoelectron spectroscopy. Reactions involving the microbial metabolites and inorganic corrosion products accumulating at the metal surface will be identified from the experimental results. A better understanding of these reactions should result in improved measures to combat this form of corrosion.